The Science Skills Replication Project

Founded in 1979, the Science Skills Center (SSC) is a non-profit community based program which encourages young minority and female students to pursue careers in science, mathematics, and technology. At its current two sites, located in Brooklyn, New York, approximately 400 students, ages six to eighteen, are enrolled in programs where they take accelerated courses in biology, chemistry, physical science, rocketry, oceanography, botany, and advanced mathematics. Classes, which are presented within the cultural and linguistic understanding of minority children, provide students with an opportunity to recognize the relationship of science, mathematics, and technology to their everyday lives. The SSC proposes to replicate its present programs, establishing three additional sites in the New York City area in three years. The SSC also proposes to establish a systematic replication program which would assist other communities, both regional and national, to establish their own SSCs. This project would require a resource person to guide communities in all aspects of program development. To assist in that effort, SSC proposes development of comprehensive educational and administrative manuals as well as the preparation of accompanying training and profile videos. Finally, the SSC proposes to develop a research module in software and manual form which would assess and track student learning, school performance, performance on standardized exams, career aspiration and selection, and student attitudes in a community based science program targeting minority students.